Wage Stickiness in American Labor Markets (Economics)

This project is a reexamination of historical evidence on labor market competition in light of current interest among macroeconomists with long run changes in wage stickiness. Four indicators of labor market structure are examined: job tenure, short run increasing returns to labor, the life expectancy of firms and the geographic mobility of products and laborers. Inferences from these indicators for change in labor market structure and macroeconmic adjustment processes are drawn. The interactive component includes co-directing the graduate seminar in economic history, teaching an undergraduate course in American economic history and participating in the Berkeley- Stanford Economic History Colloquium and the semi-annual conferences of the All-University of California Group in Economic History. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and enginemrs employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.